1991 Gordon Research Conference on Catalysis, to be Held at Colby-Sawyer College in New London, New Hampshire from June 17 to June 21, 1991

Partial support is provided for the 1991 Gordon Research Conference on Catalysis to beheld June 17-21 at New London NH. Funds will be used for support of invited speakers and of younger investigators, including advanced students, who might otherwise be unable to attend. //